US-Norway Cooperative Research: Investigation of Core- ionization Energies, Acidities and Related Chemical Properties

This award supports Professor T. Darrah Thomas of Oregon State University and Dr. Michele R. Siggel of Lawrence Berkeley Laboratory for research collaboration with Professor Leif J. Saethre of the Department of Chemistry of the University of Tromso, Norway. They share an interest in understanding the factors that affect the ability of a molecule to accept charge. They are studying the relationships between core-ionization energies, proton affinities, and the rates and orientations of additions reactions. They will also investigate substituent effects in thiopenes and the charge distri- bution in nonplanar amides. Their research uses experimental measurements of core-ionization energies and Augur kinetic energies, comparison of these energies with each other and with gas-phase acidities, and ab initio electronic structure calculations. The experimental facilities for the research, including primarily an electron spectrometer, are at Oregon State University. Some of the theoretical work is done at all three locations, but the main focus of theoretical capabilities and facilities is the University of Tromso. It has a well developed set of theoretical programs, computers for efficiently exploiting them, and a core of theoretical chemists to help in developing further insights into these problems. Many important chemical processes depend on the ability of a molecule to accept charge. This ability is affected by two factors: the charge distribution in the neutral molecule and the ability of valence electrons to rearrange after the charge is added. This research investigates the deficiencies of simple models that have long been used to understand these effects. It should produce a better understanding of the electronic structure of small molecules and of the factors that affect the ability of molecules to accept charge.